The Relationship Between Structure and Properties in Manganese-Aluminum-Base Permanent Magnet Materials

9414302 Soffa An aim of this research program is to clarify the effects of processing variables that control microstructure and defect structure in manganese/aluminum (MnAl) permanent magnet materials. A further aim is to understand the mechanisms of magnetization and magnetization reversal, which account for the hysteresis behavior and magnetic properties of these ferromagnets. A comprehensive electron transmission microscopy study is planned to examine the complex diffusional/displacive transformation occurring in this material. Deformation under compression loading is examined under a broad temperature range to determine ways of creating desired textures. Magnetic hysteresis is measured for different structural states to determine magnetic properties. This information should provide a sound basis for designing thermomechanical processing schemes for optimum manufacturing of MnAl-base permanent magnets. %%% For more than two decades permanent magnet materials based on the manganese/aluminum system have loomed on the horizon as important magnetic materials for a wide variety of applications not requiring the extraordinary properties of the more expensive rare earth permanent magnets. Application has been limited by the economics related to processing. Research results of this investigation should lead to more innovative and efficient processing strategies for manufacturing permanent magnets that are based on the MnAl (L1) intermetallic phase. ***